Collaborative Research: SaTC: CORE: Medium: Securing Interactions between Driver and Vehicle Using Batteries

The goal of this project is to develop a novel vehicle theft protection called BVI (Battery-based Vehicle Immobilizer). The project’s novelties lie with the use of 12/24V automotive batteries as a physical channel to monitor and control the interactions between drivers and vehicles. BVI is driven by unending vehicle thefts due mainly to the inability of key- or keyfob-based vehicle immobilizers, which usually rely on vulnerable external wireless communications and in-vehicle networks, to prevent thefts. The project’s broader significance and importance are multi-fold. BVI is to make significant socio-economic impacts by securing vehicles and thus benefitting all parties in the transportation ecosystem: increasing revenue and boosting brand loyalty for car makers; providing owners/drivers with stronger protection of their vehicles and thus reducing their financial loss and mental stress due to vehicle thefts; facilitating personalized insurance coverage to increase social welfare. BVI’s easy deployability facilitates tech-transitioning and also offers the project participants (graduate and undergraduate students in computing) multi-dimensional training opportunities and competence.

BVI consists of three key research components that are physically isolated from these common cyber-attack vectors, with the main tasks to design (i) two authentication systems to verify each legitimate driver using battery voltage/current as the identity carrier, (ii) an adaptive and thermally-robust power control module to reduce/restore the battery’s power capacity to dis/enable vehicle access, and (iii) four important functions to enable BVI as an end-to-end vehicle immobilizer that is compliant with the IEC 60839-10-1 standard, including estimation of vehicle status, detection of weak/faulty vehicle batteries, detection of illegitimate vehicle accesses, and automatic recharging power supplies to relieve drivers from maintenance burden. BVI is designed as a second-factor authentication solution that is complementary to car keys or keyfobs, and can also be extended to replace them, opening a new era of secure and keyless operation of vehicles.